Space Weather: Global Simulations as a Space Weather Tool

This project will undertake a systematic evaluation of the possible operational use of global MHD simulations. This will be accomplished by simulating a broad range of conditions using the Lyon MHD code (a very mature MHD model) and the results of the simulations will be compared with data. An evaluation of model simplifications and reduced resolution to enhance the computational speed will be undertaken. The effort will concentrate on identifying the conditions under which the model output would be operationally useful.